Virtual Knot Theory

DMS-0245588
Louis Kauffman

This project takes a broad approach to virtual knot theory. Knot theory
studies the embeddings of curves in three-dimensional space. Equivalently
knot theory studies the embeddings of curves in a
thickened two dimensional sphere. Virtual knot theory studies the
embeddings of curves in thickened surfaces of arbitrary genus,
up to the addition and removal of empty handles from the surface. From the
point of view of classical knot theory a virtual knot
will appear as the trajectory of a particle that sometimes abruptly
disappears from three dimensional space and reappears later
at another point in space. An example of such a trajectory would be a
superstring moving in three dimensional space, but
occasionally taking a detour into higher dimensions. Virtual knots have a
special diagrammatic theory that makes handling them
very similar to the handling of classical knot diagrams. With this
approach, one can generalize many structures in classical knot
theory to the virtual domain, and use the virtual knots to test the limits
of classical problems such as the question whether
the Jones polynomial detects knots and the classical Poincare conjecture.
Counterexamples to these conjectures exist in the
virtual domain, and it is an open problem whether any of these
counterexamples are equivalent (by addition and subtraction of
empty handles) to classical knots and links. Virtual knot theory is an
important domain to be investigated for its own sake and for a deeper
understanding of classical knot theory.

The principal investigator hopes that the above analog relationship with string theory
will bear fruit. Virtual braids are being used by the principal
investigator to establish relationships among quantum computing, quantum
entanglement and topological entanglement. It is a long-standing goal of
this project to work with knots, physics and
other natural sciences such as molecular biology.
Generalizations such as the virtual knot theory have
potential for use in a wide variety of applications where there is a
combination of topology, and combinatorially modeled physicality.
In such applications, the topology is only part of the picture. One is
dealing with systems that can be modeled in a discrete way so
that certain specified changes are allowed in the forms of the models. The
question that a topologist asks is: What is invariant under the changes?
This question is significant in applications because it corresponds to the
stable properties of molecular structures and to conserved quantities in
the physics. The approaches used in combinatorial topology can be
generalized for use in a wide variety of contexts. A good example of this
is seen in the use of knot theory in molecular biology where the allowed
changes are a combination of what the topologist regards as continuous
deformations coupled with discontinous changes corresponding to enzymatic
action and recombination. This has led to a vigorous interplay between
knot theory and molecular biology. By asking these questions about
topological relationship and the nature of knot theory, new insights and
applications in molecular biology, physics and quantum computing are
coming forth.